2001 Gordon Research Conference on Nuclear Physics, July 22 to July 27, 2001.

This award will provide support for graduate students and junior
investigators to attend the Gordon Conference entitled, "QCD in
Extreme Conditions: High Temperature, High Density and small x."
The conference will focus on issues relevant to heavy ion physics,
taking advantage of results from the first experimental run at the
Relativistic Heavy Ion Collider (RHIC) at Brookhaven National
Laboratory. Approximately 20 speakers (divided roughly between
experiment and theory) have been invited according to their
expertise and leadership in the field.